The Davis Meeting on Cosmic Inflation 2003; Davis, California; March 22-25, 2003

This proposal is a request for support to help cover the costs of organizing the Davis meeting on Cosmic Inflation. It will take place from March 22-25, 2003 in Davis California on the University of California Davis Campus. The funds will be used entirely to support graduate students who otherwise could not afford to attend the meeting.